Task Reconfiguration Problems in High-Performance Distributed-Memory Machines

The proposed research concerns the exploration of techniques for reconfiguration of task modules on distributed-memory machines when faults occur. The problems include (1) trade offs between local and global reconfiguration; (2) communications required to support reconfiguration and task computation after successful recovery; (3) fault-tolerant embedding; (4) analysis of the residual structure of networks in the presence of faulty nodes, and (5) extensive simulations of fault patterns and the performance of algorithms developed on a Paralex 10-dimensional hypercube.